Institutional Infrastructure Miniority Institutions Program:Software Engineering Research and Education Laboratory

9313299 Harmon This award provides infrastructure support for the development of research and educational activities in the area of software engineering in the Department of Computer Information Systems at Florida A&M University. Included in the program is a research productivity enhancement component, a computer facilities enhancement component, an instructional program enhancement component, and a student success assurance component. The program will improve the research productivity and instruction effectiveness of the department resulting in an increase in the number of minority students entering graduate programs and the computer science field. ***